RUI: Aquatic Photochemical Pathways and Transformation Products of OPAHs at High Latitudes: Substituent Effects, Temperature Dependence, and Salinity Impacts

Professor Zachary Redman and his team at the University of Alaska Anchorage (UAA) are investigating the photochemical pathways governing the degradation of oxidized polycyclic aromatic hydrocarbons (OPAHs) and the effects of environmental factors and chemical structure on contaminant persistence. OPAHs, formed in a complex mixture of hydrocarbon oxidation products during the weathering of crude oil and fuel spills, are of emerging concern. Their presence is established, yet there is minimal information regarding the mechanisms driving OPAH degradation in the environment. Professor Redman and his students will determine the relative contributions of direct and indirect photochemical pathways on OPAH model compounds, evaluate the influence of temperature and salinity on the pathways most responsible for degradation, and identify the photo-transformation products formed by these pathways. Their studies will provide insights into the photochemical pathways governing OPAHs degradation which would advance the fundamental understanding of the dependency of photochemistry on component structures and environmental conditions. This research will advance workforce development and the integration of undergraduate student research and education at UAA by providing training on advanced analytical research techniques. These experiences will improve retention of students in STEM programs and increase post-graduation opportunities for mentees pursuing research careers both in- and outside of academia.

This work will determine the fundamental photochemical pathways for the transformation of model oxidized products of PAHs and substituted congeners under simulated sub-Arctic conditions. This project places a primary focus on pathway mapping and photoproduct detection and identification with added emphasis on the determination of structure-reactivity relationships and the environmental drivers, such as temperature and salinity, which influence degradation rates, direct and indirect photochemical pathways, and photoproducts. Molar absorptivity, direct photolysis rate constants, and apparent quantum yields for the degradation of model OPAHs will be assessed as critical baseline parameters required for interpretation of further photochemical experiments employing pathway specific sensitizing and quenching species to assess the roles of photochemically produced reactive intermediates. Finally, through Orbitrap mass spectrometry based non-target analyses, this work will identify photo-oxidation, polymerization, and other transformation products that may serve as model species to differentiate the complex composition of petrogenic dissolved organic matter from background natural organic matter in post-spill scenarios.